Advanced Materials and Devices for High-Temperature Superconductive Electronics

The PI will study the RF surface impedance of the new high-temperature superconductors. The proposed research involves materials optimization, establishment of the origins of RF losses, modeling of those losses, and development of simple passive RF devices such as strip lines and microstrips.